Model of Auditory Periphery

A model is developed of the signal processing which occurs in the auditory periphery. This should lead to a preprocessor which could be used in aids for the deaf. The project holds great promise for discoveries of fundamental importance to cutaneous communication aids for the deaf population.